Translational Regulation in Yeast

Translation is a key which gene expression can be regulated. Mutations that alter translation initiation in yeast have been defined positive (GNC) and negative (GCD) translation regulators of the transcriptional activator encoded by GCN4. The objective of this proposal is to determine the basis for genetic interactions between two of these translational regulators, those encoded by GCN3 and GCD11. GCN3, which has been characterized at the molecular level, also exhibits both genetic and biochemical interactions with translation initiation factor eIF-2. We have cloned the GCD11 gene and now propose to characterize GCD11 at the molecular level by determining its nucleotide sequences, its requirement for viability, and its patten of transcription and translation. We will raise antibodies against GCN3 and yeast eIF- 2, to seek physical evidence for interactions among these gene products. These studies are important for bridges the gap between extensive in vitro biochemical analyses of translation factors and their proposed roles in vivo.